Implementation and Adaptation of St. Olaf First-Year Calculus in the Schools of the Chattanooga Consortium

Faculty at the University of Tennessee, Chattanooga, the Chattanooga State Technical Community College, Southern College, and area high schools are working together to improve their curriculum by adapting and implementing the model calculus program being developed at St. Olaf College. Graphical, numerical, and algebraic viewpoints are brought to bear on calculus ideas to improve students' conceptual understanding.